Quantisation paradigms in non-commutative analysis

One of the most intriguing and, at the same time, practically useful features of quantum mechanics is quantum entanglement. It is nowadays known that entanglement allows the accomplishment of operational tasks that are impossible to perform by using classical physical resources alone. It is of particular importance in quantum information transmission and processing. A very useful way to study entanglement emerged within the past 15 years, and it is centered around non-local games, originally studied purely from the perspective of theoretical computer science. More specifically, non-local games have proved to be a useful tool for the study of the presence, the power and the limitations of quantum entanglement. This project is aimed at pursuing further the organic links between non-local games and the mathematical analysis on non-commutative structures. It forms part of the current large-scale quantization program in mathematics and focuses on the passage from finite to infinite non-local games. The work will deepen the existing links between mathematical analysis and quantum computing, and will generate new ones, which will serve directly the better understanding of fundamental quantum mechanical notions and the role of advanced mathematical techniques in their examination. The project will enhance the theoretical underpinning of quantum information theory and provide research training opportunities for graduate students, thus contributing to the quantum initiatives pursued at present at a number of levels nationally and adding to the training of a highly qualified workforce in this area.

The backbone of this project is formed by operator algebras, operator systems and operator spaces, and the various ways one can distinguish them, depending on the physical model they represent. It develops core operator algebraic techniques and applies them in the growing cross-disciplinary area of non-local games. Forming a part of the quantization program in mathematics, it defines and studies new operator algebraic concepts arising from combinatorial, topological and dynamical structures, achieving the following main objectives: (i) utilize new continuous quantum groups of symmetries in the study of quantum isomorphisms of operator systems in UHF C*-algebras, which can be viewed as continuous graphs; (ii) exhibit a new hierarchy of quantization paradigms, leading to notions of quantum Morita equivalence of operator spaces, and initiate the study of non-local games over operator spaces; and (iii) investigate quantum analogues of classical symbolic dynamics and outlines a feasible route for developing quantum subshifts and related operator algebraic results. The project exhibits analytical features of discrete and topological structures with a broad spectrum of applications, including quantum homeomorphisms of topological spaces, and studies novel operator systems as a major new ingredient in understanding quantum symbolic dynamics.